STTR PHASE I: Weather Information Network Enabled Mobile System

The goal of this Small Business Technology Transfer (STTR) Phase I project is to determine the feasibility of leveraging existing weather and communication systems to provide location-specific, detailed, automatic, and continuous weather information nationwide to the general public. The project will determine the feasibility of using an existing nationwide communication system in a novel manner to augment regional weather broadcasts. It will also determine the features and capabilities that must be included to make the commercial system user friendly and autonomous.
The commercial implementation of this research is expected to provide the traveling public with weather information presented by portable units suitable for personal use in automobiles, aircraft, and pleasure boats.